Acquisition of a Scanning Focused Ion Beam (FIB) System

9724277 Dravid A scanning focused ion beam (FIB) system for fabrication, lithography and site-specific micromachining of a diverse set of materials systems will be acquired by Northwestern University. Material systems to be studied using the FIB capabilities include structural ceramics, metal alloys, electronic, polymeric and biological materials. %%% The instrument will assist a large number of research programs at Northwestern and local institutions. It will also impact the undergraduate curriculum at Northwestern as well as the University's education outreach activities. ***